SUMS4BIO: Strengthening Undergraduate Mathematics and Statistics Education for Biologists

All biology students need a comprehensive and functional understanding of mathematics and statistics. This project focuses on students at a lower level of quantitative skill development and incrementally develops their skills to more sophisticated levels. Biology Department faculty are collaborating with Mathematics & Statistics faculty to design curricular strategies and materials for improving quantitative skills of the Biology major. Faculty teams are developing two new courses: a freshman-level Mathematics for Biology (M4B) course and a sophomore-level Statistics for Biology (S4B) course. The M4B course is closely linked with two introductory biology courses: Ecology & Adaptation and Introductory Seminar in Biology. Through an intentional plan of vertical integration, students expand and develop basic skills in remaining biology core courses. During the sophomore year, the two departments explicitly link the new S4B course to Organismal Biology, the final core course in the Biology major. The S4B course engages students in exploring underlying assumptions and principles of statistical tests. Students use this new knowledge to develop conceptually richer and more independent research projects in Organismal Biology labs. The project makes extensive use of peer instruction; math students mentor and advise biology students as they begin to use more sophisticated quantitative tools in their courses.

The project is providing a model for teaching mathematics in biology at demographically similar institutions. All curricular materials are available on the web, presented at national meetings, and published in peer-reviewed science education journals. Finally, Radford University is hosting a national conference for biology educators from similar institutions, providing a forum for disseminating the project's model and integrating it with approaches developed elsewhere.